Support for U.S. Participants in the XVI Pacific Science Congress, Seoul, Korea - August 20-30, 1987

Proposal Objective: This proposal requests funds to partially support approximately 30 U.S. participants in the 16th Pacific Science Congress (PSC) to be held in Seoul, Korea, August 20-30, 1987. The U.S. P.I. is Dr. John E. Bardach, President, Pacific Science Institute of the PSA, Honolulu, Hawaii; Prof. Tai Whan Shin, National Academy of Sciences, Republic of Korea, is Chairman of the 16th PSC Organizing Committee. PSA if a well-established international, nongovernmental organization dealing with interdisciplinary science in the Pacific in environmental biology, earth sciences, information science, and social and economic science. The theme of the Congress is "New Dimensions of Science, Manpower, and Resources in the Pacific." This broad topic will be developed through the following three general symposia and fifteen more specific sections: (1) Development of Science and Technology in the Pacific Countries; (2) Population and Food in the Pacific Basin; and (3) Prospect on the Major Resources of the Pacific Region. More than 1100 scientists have preregistered for the Congress. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Merit of the Proposal: The U.S. and Korean coordinators of this international conference are highly respected scientists who have had extensive experience in organizing international activities. The U.S. P.I. has been the recipient of NSF awards in support of previous PSA Congresses and Intercongresses. The proposed method of announcing NSF support and the selection of the recipients of travel funds by a committee of seasoned experts should be entirely satisfactory. U.S. participation in the 16th PSC will be beneficial to members of the U.S. scientific community. Funding: This proposal is not supported by other U.S. government agencies or other NSF programs. Only U.S. participants will be supported. A grant in the amount of $30,000 is recommended. The Bernice P. Bishop Museum acts as the fiscal agent for the PSI, and handles administrative activities of the PSI. The offices of PSI are in the Bishop Museum. Dr. W. D. Duckworth, Director of the Museum is Vice President/Treasurer of the PSI.